Practical Address Validation for the Internet

This proposal is aimed at developing a general framework for source address validation across the Internet and investigating issues in realizing the source validation deployment. Result of this work will help in stopping malicious attacks such as denial of service' attack. The work includes enhancements to the current network routing protocols to provide necessary information for source validation, creating a prototype implementation of the source validation checking and deploy it on the CAIRN testbed. Through real implementation the performance of the new protocols will be investigated including how effectively source address validation supports diagnosis of flaws and attacks when it is only partially deployed.